Some Studies in the Mathematics and Mechanics of Textured and Prestressed Polycrystalline Materials

Man
DMS-0807543

This project comprises three parts. In Part 1, the
objective is to develop a group-theoretic method by which
explicit expressions that delineate the effects of
crystallographic texture on material tensors of weakly-textured
polycrystalline materials can be derived systematically. A
representation theorem is proved that reduces the problem to that
of finding irreducible tensor bases of the rotation group. A
method is developed to generate irreducible tensor bases for a
given tensor space. The method delivers representation formulas
at once applicable to all texture and crystal symmetries.
Specific instances important for applications in
acoustoelasticity and plasticity are fully worked out. Part 2
concerns nondestructive inspection of subsurface residual stress
by ultrasonic measurements. The material body in question is
modeled as a vertically heterogeneous, prestressed, anisotropic
half-space. An extension of the Stroh formalism is developed to
relate the dispersion of the Rayleigh wave to the vertical
heterogeneity of stress and/or texture. In Part 3 a
phenomenological theory is developed for the interpretation of
resonance shifts and line shapes in ultrasound resonance
spectroscopy of sheet metals. The sheet metal in question is
modeled as a textured, largely elastic material with a small
power-law viscosity. An attempt is made to draw information on
resonance shifts, line shapes, and frequency dependence of
attenuation through analysis of the basic initial-boundary-value
problem.

The crystal grains that constitute polycrystalline materials
(e.g., wrought and cast metallic alloys) often carry preferred
orientations (or crystallographic texture) that strongly affect
mechanical behavior of the aggregate material (e.g., the
formability of sheet metals). Part 1 of this project delivers
formulas that describe quantitatively how crystallographic
texture affects the behavior of a polycrystalline material in
elastic and plastic deformations. Part 2 arises from the
industrial need for a nondestructive measurement technique that
allows monitoring of the retention of subsurface residual stress
induced by surface conditioning treatments on metal parts for
lifetime enhancement against fatigue failure and stress corrosion
cracking. The availability of such nondestructive technique
also allows emerging surface-enhancement technologies (e.g.,
laser-peening, low plasticity burnishing) to be more cost
effective and improves quality control of surface conditioning
processes. Part 3 helps lay the mathematical foundations for the
development of an ultrasonic technique for monitoring of texture
and material microstructures in sheet metals (and hence of their
formability) on the production line.